Mathematical Sciences: Computer Assisted Studies in Commutative Algebra

This project is directed at studying Cohen-Macaulay rings and algebras, and effectively computing their invariants. Its aims are to uncover and extend the role of Koszul homology in the structure theory of Cohen-Macaulay singularities; to investigate the structure of the algebras of linear type; to examine the equations of symbolic power algebras; to study the invariants and singularities of commuting varieties of Lie algebras and their representations; and to develop methods and algorithms that allow for very large scale computations in commutative algebra. This research is in the general area of commutative algebra and the computer-aided computational aspects of this field. There is a growing interest in using computers to answer theoretical questions. This project makes serious use of both the theory and practice of symbolic calculations to solve real problems in commutative algebra.